Role of mRNA Transport in Isoactin Sorting and Process Outgrowth

9811384 BASSELL Neurons are the quintessential asymmetric cell having two morphologically and functionally distinct types of processes: axons and dendrites. The development of the nervous system proceeds by the extension of processes over long distances to reach their appropriate target cells. The ability of a neuronal process to grow and be properly directed depends upon a unique structure at the tip of the growing fiber called the growth cone. This compartment is filled with a cytoskeleton of fibrous polymers that induce membrane protrusions and influence both the rate and direction of process outgrowth. One of these polymers is composed of the dynamic protein, actin, which can rapidly form bundles that project from the growth cone in the form of filopodial protrusions of the membrane and which promote process growth. An important area of basic research is to understand how the nerve cell targets the cytoskeletal molecules to the growth cone for their utilization in filopodial formation and control of process outgrowth. Dr. Bassell's laboratory has shown that a specific actin isoform, beta-actin, is highly enriched within growth cones. They have proposed that the localization of the beta-actin protein depends on the localization of beta-actin messenger RNA (mRNA, the intermediate piece of genetic information that codes for the synthesis of the protein). The localization of mRNAs is an important protein sorting mechanism that has been recently demonstrated in several cell types. They hypothesize that the localization of mRNAs may be a basic mechanism for the normal regulation of growth cone structure and motility. As a model system to study mechanisms involved in process outgrowth, they are using a cell culture approach in which cerebral cortex is dissected from embryonic rats and the dissociated cells are grown on a suitable matrix in a liquid medium. High resolution microscopy and DNA probe methods developed in the laboratory will be used to defin e where beta-actin mRNAs are normally localized in living cells, and hence where beta-actin protein monomers are normally produced. By perturbation of this normal mechanism in live neurons growing in culture, it will be possible to determine the function of mRNA targeting and localized synthesis in process outgrowth. Molecular strategies, such as expression of a mutated protein that is normally involved in mRNA targeting, will be employed to disrupt this mechanism in living cells. It is expected that neurons that are unable to target beta-actin mRNA and protein to growth cones will have abnormal migration characteristics. The elucidation of a novel mRNA transport mechanism in neurons should provide insight into the regulation of growth cone structure that may underlie process outgrowth during the development of the nervous system.